Digital Government: Automated Dental Identification

EIA-0131079
Hany Ammar
West Virginia University

Digital Government: Automated Dental Identification

This grant will support the development of tools for rapid identification of individuals based on dental records. The technology proposed has potential for high impact in investigations, such as the World Trade Center, where only dental records are available to aid in victim identification. Technically, the work will involve the creation of a pilot Digital Image Repository, include image manipulation (feature extraction, image enhancement), high-speed databases (archiving and matching), neural nets, and parallel computation using a network of workstations. The grantee will collaborate in this work with the FBI.